EAGER: Investigating Relationships Between Beach Soil Stability and Groundwater Dynamics

This EArly-Concept Grants for Exploratory Research (EAGER) award will support research that advances fundamental understanding of beach sand stability under changing water levels and coastal groundwater flow conditions. This promotes progress in coastal science research and informs the design and maintenance of critical coastal infrastructure that safeguards society. To complete this research, novel and emerging field data collection tools will be used to measure changes in soil stiffness, strength, and stability in the intertidal zone on a sandy beach, one of the characteristic coastal environments where the ocean meets the land. Geotechnical investigations of beach sands have been limited as site accessibility can be difficult, especially in the intertidal zone where wave runup occurs. Thus, the effect of tides, storm surge, and coastal water level fluctuations on soil strength and erosion mechanisms is not fully understood. Advancing this knowledge will improve coastal erosion modeling and inform the design of infrastructure such as foundations, retaining walls, dunes, roads, pipelines, and breakwaters. The award also supports workforce development through training and mentoring of undergraduate and graduate students with opportunities for hands-on experience in natural hazards research and advanced instrumentation.

This research seeks to link tidal and storm-driven seepage with beach sand stability to improve modeling of soil behavior under variable coastal water conditions. The specific research objectives are to: (1) conduct geotechnical (dynamic cone penetrometer), geophysical (surface wave setups for shear wave velocity, electrical resistivity tomography), and topographic surveys alongside measurement of water level fluctuation and moisture content to evaluate soil strength and stiffness at a sandy beach in Duck, North Carolina during different seasons, (2) perform laboratory testing of collected samples to evaluate grain size, soil water characteristic curve, and strength parameters, (3) quantify spatial and temporal variability in sandy beach soil strength and stability by performing seepage and stability analyses that leverage field and laboratory test data, and (4) assess impacts of seepage on geomorphodynamics and stability of coastal infrastructure for different hydrodynamic scenarios. The resulting data and analyses will address key gaps in coupled hydraulic and geotechnical modeling in coastal environments.